Stability Problems in Plasma Physics, Stellar Dynamics and Classical Field Theory

The research that is funded with this award will address problems in
plasma physics, stellar dynamics, and superconductivity. The PI will
construct steady state solutions of the partial differential equations that
model these phenomena and will study their dynamic stability. Specifically,
the Vlasov model for collisionless plasmas, models for polytropic galaxies,
and models for superconductivity and superfluidity that exhibit vortices will
be investigated.

This award will fund research on mathematical models for phenomena in
which huge numbers of individual particles interact. These phenomena
can occur in plasmas, the physical state of the interior of fluorescent lights,
manufacturing reactors for microchips, and of the interior of the sun. In this
case, atomic particles interact by means of electromagnetic forces. Related
phenomena also occur on cosmic scales, for instance in galaxies, where
the interacting particles are entire stars and the interaction is by means of
gravitation. The mathematical models for these very different situations have
similarities. The research will study equilibrium configurations such as the
steady state operation of a plasma-assisted manufacturing device or the steady
rotation of a galaxy and seek to understand its stability or the ways in which
stability is lost. Instability may mean loss of efficiency for a manufacturing
process or the formation of spiral arms in a galaxy.